New Highly Conducting Molecular Crystals

The program is devoted to the synthesis and characterization of novel conductive and magnetic materials based on metal-organic (M(L)) complexes. Section I of this proposal describes the study of quasi one-dimensional molecular metals that are propared from metalloporphyrins and phthalocyanines. These show remarkable properties without parallel in other classes of material, in particular a new type of low-temperature condensation within an M(L) stack that exhibits a one-dimensional spine of metal-ion local moments embedded within the "Fermi Sea" of a conducting organic framework. Section II describes the synthesis of planar surfur-encircled metallomacrocycles that can engage in highly three-dimensional interactions. These compounds will also be used to prepare multi-metal porphyrin complexes and well-defined, two-dimensional metal-linked polymers that will be studied as films and fibers. Section III describes the preparation of new materials based on tris-dichalcogenide complexes of transition-metal ions. These complexes provide inherently three-dimensional building blocks for the synthesis of molecular metals, superconductors and ferromagnets.